NSF Workshop on Unwanted Traffic

Proposal Number: 0841273
PI: Zhuoqing M. Mao
Institution: University of Michigan Ann Arbor
Lead

Title: NSF Workshop on Unwanted Traffic

The objective of this workshop is to provide a venue for discussion about the important and vexing problem of denial of service attacks, as exemplified by the recent attacks on Estonia and Georgia. Such attacks are all but impossible to mitigate with existing technology. The participants of this workshop will attempt to identify new solutions to prevent and/or cope with denial of service attacks, perhaps involving fundamentally new network security architecture. Industry involvement in the workshop is vital to its success, as there is a clear need for network agents, such as ISPs to cooperatively identify unwanted traffic and to block such traffic, even if some traffic of their clients is erroneously blocked.

The workshop will produce a detailed report to be posted on the NSF web site.